Heat Transfer During Melting of Packed Particulate Beds

The understanding of the transport phenomena associated with the melting of packed particulate beds is critical to our ability to predict processes which occur during severe nuclear power plant accidents, or for the containment of radioactive wastes through in situ vitrification, and for a wide range of materials processing techniques which depend on powders as a raw material. This program, the first indepth study of heat and mass transfer during melting of packed particulate beds, involves both experimental and numerical research. The objective is to determine the transport properties for melting packed beds essential to modelling the melting process. These properties include effective thermal conductivity, capillary pressure, and relative permeability. In addition, the shape of melting particles is critical to modelling the densification which occurs during melting. The results of this research will enable the melting process to be accurately modelled. This will allow the process to be designed to achieve desired objectives in a wide range of applications ranging from vitrification of hazardous wastes to the production of new materials.